Cea-Crest: The Center for Environmental Analysis of the California State University, Los Angeles

HRD-9805529 P.I.: Robles, Carlos Inst.: California State LA University California State LA University will establish a regional Center for Environmental Analysis (CEA-CREST) focussed on research and education. The Center will collaborate extensively with the University of California at Santa Barbara and several other schools in the region. Nine Principal Investigators from three departments will cooperate to investigate four different, but correlated, areas of environmental impact. An excellent existing outreach program for minority students will be further enhanced, and undergraduates will be employed on each of the research projects.